AIChE Meeting on Gender Issues

ABSTRACT CTS-9701081 This award supports the travel of Dr. Eleanor Baum, Dean of the College of Engineering at Cooper Union, who was invited to give a keynote speech at the Gender Issues Luncheon at the Annual AIChE meeting in Chicago, IL., November 14, 1996.